BDEI-PIs Workshop: Reporting Results and Research Prospects of Planning and Incubation Grants; February 11, 2003; Washington, DC

This workshop will bring together NSF grantees of the cross-agency Biodiversity and Ecosystem Informatics initiative to discuss progress in the past year and possibilities for further work in the area. Also attending will be representatives of interested Federal Agencies and interested NSF programs. The workshop will be held in the Washington, DC area February 10-11,2003.